The Mathematics Archives Outreach Program: A Program of Dissemination and Education about Mathematics on the Internet

Earl D. Fife DUE 9550943 Calvin College FY1995 $ 100,000 Grand Rapids, MI 49506 ILI - Leadership in Laboratory Development: Mathematics Title: The Mathematics Archives Outreach Program: A Program of Dissemination and Education about Mathematics on the Internet The Internet is becoming an increasingly fertile source for information and tools of use and interest to the mathematics community. These resources range from programs and class notes to data sets for statistics and discussions of timely topics vital to the mathematical community. Many persons who would benefit from these resources are unable to do so because of a lack of knowledge of what is available and a lack of understanding of how to access items on the Internet. Based on experience with the Internet in establishing and running the Mathematics Archives, this project is informing the mathematical community about available resources on the Internet and educating them on how to access those resources. This will be accomplished with an ambitious program consisting of presentations at sectional meetings of the MAA and running special sessions, workshops, and minicourses at national and regional meetings, such as those of the MAA/AMS, AMATYC, and ICTCM. The impact of this program on the mathematical community is expected to be substantial.